Elementary Math and Technology (EMAT)

A collaborative effort on the part of the Boston Public Schools and Boston University, this 39.month project will enable elementary schoolteachers throughout the school system to integrate computer-based materials into the teaching of mathematics. Several innovative curriculum projects that develop problem.solving skills will be reviewedin order to define their place in the elementary mathematics curriculum. Through instruction in mathematics content and interaction with mentor teachers, a total of seventy-five well-prepared K-5 teachers will be readied to use these materials, and to provide inservice instruction to their colleagues. Participants will include bilingual teachers, special education teachers, and teachers of gifted and talented students. The evaluation will assess the project's effect on teaching strategies and on student learning, and dissemination activities will include the production of a videotape. The Boston Public Schools is contributing an amount equal to 58% of the NSF award.